U.S.-Chile Cooperative Research: Condition Number and Complexity of Algorithms for Convex Optimization

9703803 Freund This Americas Program award will fund a 2-year cooperative research project between Dr. Robert Freund, MIT, and Dr. Jorge Vera Andreo, Universidad de Chile. They propose to study condition numbers on various mathematical programming problems, with the purpose of improving various algorithms. The aim is to understand the relationship between algorithms performance and the inherent "conditioning" of a given optimization problem, and to take advantage of such relationships to construct more efficient algorithms for convex optimization. Convex optimization problems, and algorithms for their solution, are of fundamental importance in applied mathematics, operations research, and theoretical computer science. Through this research, the investigators hope to shed new light on the underlying mathematics and on the computational complexity and efficiency of solving those problems. ***